Self-Stabilizing Group Communication for Mobile Environments

Group communication services form important building blocks for applications in dynamic
distributed systems, where processors and communication links can repeatedly fail and recover.
Such dynamic behavior is especially descriptive of mobile environments, in which processors can
change their physical location continually. The key features of a group communication facility are
(1) indicating to each processor with which other processors it can currently communicate, and (2)
letting processors within a group communicate with each other in an ordered and reliable manner.
A typical approach to developing fault-tolerant software is to assume certain limitations on the
behavior of faulty components. However, in reality there is a non-zero probability that any such
assumptions will be temporarily violated; in fact, this probability grows with time. In particular,
mobile communication networks are exposed to environmental noise whose level is hard to predict
in advance. Thus, it may be too optimistic to approach correctness by assuming that the system
is consistent initially and each subsequent step maintains consistency. Self-stabilizing algorithms
cope with temporary faults in an elegant way. A self-stabilizing algorithm can be started in any
global state, which could be reached due to an arbitrary combination of failures, and always en-sures
that the task of the algorithm is achieved, assuming that the designer's assumptions hold for
sufficiently long intervals.
The goal of this research is to design self-stabilizing group communication services and apply
these services to mobile networks.
One part of the research will focus on the specification and design of initialized group services,
in which the establishment of a new group ensures that messages related to previous incarnations
are discarded. Various synchrony assumptions will be considered in order to identify the necessary
and sufficient conditions for the specified initialized group services. One approach to be investi-gated
is using transient fault detectors that will trigger the establishment of a new group whenever
inconsistency is detected. Impossibility results will be developed to indicate which system assump-tions
are necessary; lower bound results will be proved to shed light on the degree of optimality of
the solutions obtained. A second part of the research will study how different mobile applications
can take advantage of the self-stabilizing group communication services developed. A third part
of the research will explore the interactions between the group communication services and other,
lower level, mobile services.
Group communication services have been incorporated in several existing academic and indus-trial
distributed systems. However, none of them is self-stabilizing and none of them is specifi-cally
tailored for mobile environments. Self-stabilization and group communication are important
paradigms for the design of dynamic communication networks, and in particular wireless net-works.
There is no doubt that the new methods developed in this project will contribute to future
implementations of robust group communication systems.